Advanced Compilation Techniques for Novel Architectures, NSF-NCRD Workshop

ABSTRACT NARRATIVE Description: This proposed workshop, the fifth National Science Foundation-National Council of Research and Development of Israel (NCRD)workshop formalized by a May 1985 Memorandum of Understanding, supports the attendance of six U.S. scientists (other invited U.S. scientists may attend at their own expense) and the collaboration of Dr. Marina C. Chen, Yale University as the U.S. workshop co-chair and with Dr. Ron Pinter, IBM Israel Scientific Center, the Israeli co-chair. The workshop to be held in 1990, probably in October in Jerusalem, will focus on advanced compilation techniques in at least four major areas of compilation techniques in novel computer architectures. Attendees will give or provide papers during the workshop. These papers along with workshop discussions will be published as a book through separate arrangements, made outside the scope of this proposal, with the publishers, Springer-Verlag. The co-chairs and a publisher editor will edit the publication, which should be available by late Spring 1991 to the U.S. and Israeli science communitities. Scope: This proposal will continue a series of workshops convened to consider areas of mutual scientific interest to the Foundation and the Israeli NCRD. The subject of this workshop is important to the U.S. as it is necessary for this country to remain competitive in the world of supercomputing. Compiler technologies are deemed crucial to the effective use of new generations of supercomputers. The Israeli parallel computing community, while small, is growing and has made several interesting contributions to the field, both in theory and in practice. This workshop has the possibilities to foster some important exchanges of scientific knowledge in computer science that could benefit each country and also to provide international science a new source of publication reference